Nuclear Physics Experiments with Kaons and Muons

Medium energy physics research on hypernuclear spectroscopy and muon catalyzed fusion will be performed. The hypernuclear studies will be carried out as part of the CEBAF Hall C and Hypernuclear Spectroscopy System (HNSS) collaboration. The HNSS Phase I and II is a fully approved CEBAF experiment to measure photo- and electroproduction of hypernuclei. Ongoing work in muon catalyzed fusion will continue in connection with an approved TRIUMF and Vienna. At CEBAF, responsibilities include: design review of the SOS spectrometer particle identification system, construction of the electron spectrometer's scintillator hodoscope and alignment hardware, and participating in the design of a trigger method to correlate electron-arm information with the Kaon-arm, producing an efficient hypernucleus trigger at an acceptable rate. Also, a prototype beam intensity and position monitor for Hall C, based on a commercial SQUID magnetometer will be tested. For work at TRIUMF large area, cryo-capable silicon diodes will be produced for detection of stopping charged fusion products from muon catalyzed fusion in layered frozen hydrogen targets. ***